Dissertation Research: Comparative Foraging Psychology of Golden Lion Tamarins and Wied's Marmosets

A number of primatologists contend that primate and human intelligence evolved in the context of exploiting "patchily" distributed, high quality food, such as fruits, as against leaves. Among primates, species that rely on patchy resources do exhibit larger brains relative to body size than those that rely on evenly distributed foods. This relationship suggests that the distribution of food has been important in the evolution of increased brain size and its presumed cognitive correlates. However, the extent to which primates exhibit particular cognitive skills adapted to specific foraging problems rather than a general purpose intelligence suited to a broad range of tasks, is still open to investigation. This dissertation project will investigate the relationship of dietary preferences and spatial memory in two primate species. The graduate student will compare a leaf eating and a fruit eating prosimian is a series of sophisticated laboratory tests involving spatial memory - defined as their ability to find and relocate objects in space (the fruit eaters should be superior). Then, the species will be tested for non-spatial memory, where they would not be expected to differ. Finally, experiments have been devised which may examine the mechanisms underlying spatial memory in the different species.